U.S.-Poland Research on Non-Classical Problems of Thermoelasticity

The primary objective of this U.S.-Poland research project between Dr. Richard Hetnarski of the Rochester Institute of Technology and Dr. Jozef Ignaczak of the Polish Institute of Fundamental Technology Research is to analyze wave propagation in generalized thermoelastic solids. The researchers hope to gain a better understanding of interactions between the mechanical and thermal fields in a continuum. Efforts will emphasize fundamental work pertaining to temperature-rate dependent thermoelasticity (TRDT) theory and nonlinear dynamic coupled thermoelasticity (NDCT) theory. Results are expected to contribute to our basic knowledge of the principles underlying high-temperature superconductivity and semiconductor processing. This engineering project in solid mechanics fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Eastern Europe to combine compelmentary talents and pool research resources in areas of strong mutual interest and competence.